Real-Time Virtual Resources

Aloysius K. Mok
CCR-0207853
"REAL-TIME VIRTUAL RESOURCES"

As embedded systems become more complex, a typical embedded system
will probably involve a mix of soft and hard real-time applications
that share the same embedded run-time platform. In general, an
application may consist of one or more tasks. For example, on a
hand-held sensor-computer, a user may want to fix his own location
with respect to a target landmark and also be warned of the power
consumption status of the sensor-computer. While the power consumption
warning task may have very loose timing constraints, the location
fixing task has fairly stringent timing and other QOS (quality of
service) requirements. Ideally, an application developer should be
able to write his application program as if it were running on a
dedicated computer and not have to worry about interference from
other applications. This illusion can be maintained if global
knowledge of the QOS requirements of all the applications is
accessible to the operating system scheduler, so that a global
schedulability analysis can be performed to ensure that every task
meets its QOS requirements. However, this is not possible in the
environment of "open systems" where the operating system may not
know about the timing requirements of all the application tasks,
as is the case with most commercial embedded and real-time kernels.

A simplistic solution is to assign a higher priority to timing-
critical applications and let the non-real-time applications run
only when the timing-critical ones are finished. This approach is
viable only for the simplest embedded systems where there is only
one real-time task and there is no interaction among the real-time
and the non-real-time tasks. If all the applications are to various
degrees timing-critical (hard or soft), then the distinction between
real-time and non-real-time applications becomes blurry. In the
sensor-computer example, if the power consumption warning task is
assigned a low priority because of its laxer timing constraint, then
it is possible that power may run out while the high-priority location
fixing task is monopolizing the CPU. This may in turn cause a sensor
reset that may affect the validity of the location fixing result.

The goal of this project is to enable the design of robust embedded
real-time systems that must function in an open systems environment.
The innovation we are investigating is an elegant software abstraction
called RTVR (real-time virtual resource). This abstraction allows
application programmers to design embedded real-time systems as if
each application had exclusive access to a set of dedicated physical
resources which provide service at a roughly constant rate. The key
to the RTVR concept is that of a "delay bound" parameter on the rate
of service provision. The delay bound specification enables a
programmer to specify the jitter allowance of his/her application.
As a result, we can simplify the verification of the timing correctness
of individual applications as if there is no timing interference
among application tasks. The RTVT concept also simplifies the issue
of guaranteeing the timing/QOS requirements of a mixture of hard
and soft real-time applications. To realize this abstraction, we
must make major advances in both theory and engineering in operating
system design and real-time scheduling theory. Of particular interest
to this project are the issues of partition composition and the
hierarchical decomposition of multiple real-time virtual resources.